IUCRC Phase I: University of Illinois at Urbana-Champaign (UIUC): Center for Advanced Semiconductor Chips with Accelerated Performance (ASAP)

The Center’s research is structured into three tightly integrated themes, including materials discovery for electrical and optical interconnects, heterogeneous 3D integration, and highly energy-efficient circuits and architectures. The materials-to-architectures co-design approach will allow the Center to address the fundamental technological roadblocks toward enabling future microprocessors with higher performance but lower energy consumption. By integrating disparate components on silicon, such as interconnects based on quantum materials, nanodielectrics, magnetic and ferroelectric memory, nano-photonics, and III-V elements, the Center seeks to reduce the energy-delay cost of data communication hundred-fold in chips adopting novel processing-in-memory architectures. Center faculty members have cross-disciplinary expertise in materials science, nanoscale electronic and photonic device fabrication and characterization, computational modeling, and circuit and architecture design. By focusing on technologies that are mutually beneficial for digital and RF applications, the Center will collaboratively address the research needs of its industrial members representing different microelectronics sectors and thus different research priorities. The Center will engage with semiconductor foundries, chip manufacturers, small startups, DOE national labs, and DoD labs and collaboratively seek to make a sustained and meaningful impact on the next-generation information-processing systems.